Comparative Structural Analyses of Social Science Disciplines: Patterns, Roots and Consequences

This is a study of the intellectual and social structure of three sciences: sociology, economics, and political science. It will analyze membership statistics and similar data from the professional organizations of these fields. First, this study will chart the structures of these disciplines, using social network analysis, multidimensional scaling and cluster analysis. Then it will compare structures across disciplines. Finally, it will attempt to explain the patterns in terms of the factors that generate and reproduce them. This study will help social scientists in the three disciplines understand the intellectual structures of their own fields. The data will be a valuable resource for educators, guiding college curriculum design and providing a useful framework for long-range planning in academic institutions. The study will also contribute insights for the sociology of science, through the conceptual maps it generates of sociology, economics, and political science.